EAGER: Toward Commercial PHA Production on Dairy Manure: Analysis of Mixed Microbial Consortia to Identify Critical Proteins and Metabolisms associated with Feast-Famine PHA Syn

0950498
Coats

This EAGER research is to (1) identify proteins statistically relevant to the feast-famine process for microbial synthesis of polyhydroxyalkanoates (PHA) and (2) integrate proteomics and statistics to develop a preliminary understanding of feast-famine PHA synthesis. These are first steps in a vision to create microbial processes for producing plastics through fermentation from wastes such as manure and wastewater.